Alliance Network Development for Implementation of Science Education Standards

9353104 Williams This project will use the alliance in the Triangle Coalition to implement and disseminate communication strategies for education reform in science and mathematics. Selected communities will develop and test communication strategies in support of reform and work with the Triangle Coalition to build community involvement and support for new directions in mathematics and science education. ***